Group travel grant for U.S. young scientists to attend ICPEAC XXII

This award provides support for student attendance at the XXII International Conference on Photonic, Electronic, and Atomic Collisions. The conference, one of the international focus conferences in AMO physics, is being held in Santa Fe, New Mexico, 18-24 July, 2001.